The Influence of Late Quaternary Climate Change on the Ecology and Evolutionary Dynamics of Small Mammalian Herbivores

0212370
Smith

This research investigates the evolutionary response of woodrats to
temperature change over the late Quaternary. The project involves work at cave sites in the southwestern United States, using fossilized woodrat middens or debris
piles. Middens consist of plant fragments, fecal pellets and other
materials embedded in crystalized urine ("amberat"); when sheltered in
caves they persist for thousands of years. Measurements of radiocarbon-dated
fecal pellets are used to estimate body size; for most mammals, size is sensitive to
environmental temperature. Over the next year, we will investigate a
number of potentially problematic sampling and statistical dimensions of
our study system, including conducting studies with modern animals to
examine midden deposition and composition.

Organisms may respond to anthropogenic climate change by adapting or going
locally extinct. However, the timing, magnitude and nature of such
responses remains unclear. The past ten thousand years are arguably the
best proxy we have for understanding the likely effects of anthropogenic
climate change. By examining different species of small rodents at
different locations within their range over the late Quaternary, and
estimating the thermal thresholds at which different types of evolutionary
responses occur, we may be able to better understand how future climate
change will impact mammalian populations.